ITR/SY(CISE): Why algorithms work well in practice: pertubation-based average-case analysis of the simplex algorithm and beyond

Computer Scientists have been challenged by the existence of
remarkable algorithms that work well in practice, but whose
theoretical analyses suggest that these algorithms should perform
poorly or are inconclusive. The root of this problem is that
traditional theoretical analyses measure the performance of
algorithms on their worst inputs. This research analyzes the
performance of algorithms using smoothed analysis, a new measure of
the performance of algorithms that can better predict practical
performance. Using smoothed analysis, this research aims to explain
the good practical performance of some algorithms that are famous
for outperforming pessimistic worst-case analyses.

In particular, algorithms that take real or complex inputs, such as
those that usually occur in scientific and engineering applications,
are examined under random perturbations of their worst-case inputs.
The most famous of these, the simplex method for linear programming,
was the subject of the paper introducing smoothed analysis. Yet, this
work only investigated one rarely-used pivot rule. This research
attempts smoothed analyses of the simplex method under more commonly
used pivot rules. It also considers smoothed analyses of interior
point methods and algorithms for convex programming. An attempt is
being made to extend this analysis to algorithms that take discrete
inputs.